Destructive Field Testing of a R C Bridge as a Benchmark to Validate FE Modeling and Analysis of RC Structures

It is proposed to exploit a destructive bridge test for the advancement of analytical modeling and nonlinear analysis of reinforced concrete structures. Collaborating researchers from the University of Cincinnati and Wiss, Janney, Elstner Associates, Inc. will design, conduct and document the test as a benchmark experiment for validating and calibrating RC bridge analytical finite-element modeling and analysis. Instrumentation will be designed and installed to measure local and global responses to serve this purpose. Information will be documented, archived and disseminated to permit analytical model generation and response simulation by analytical researchers. The test will provide a unique opportunity to identify unknown and/or unmeasured phenomena influencing advanced limit-state responses of aged and deteriorated constructed facilities so that these may be analytically simulated. The principal investigators from WJE and UC are respectively the vice-chairman and a member of the standing joint ASCE-ACI Committee on Finite Element Analysis of Reinforced Concrete Structures.